1992 Benjamin Franklin Symposium in Celebration of the Discovery of the Neutrino; Philadelphia, Pennsylvania; April 30-May 1, 1992

This award supports the 1992 Benjamin Franklin Symposium in Celebration of the Discovery of the Neutrino; Philadelphia, Pennsylvania on April 30 - May 1, 1992. Twenty-one talks are scheduled to review the current status of neutrino physics research efforts world-wide. The topics include solar neutrino experiments, double beta decay, neutrino mass and oscillation, neutrinos from reactors and supernova.